Student Projects for Technology Assistance for Special Consumers

This project will fund undergraduate engineering students to design devices and systems to aid the disabled. Coordination will be performed by Technology Assistance for Special Consumers, an organization within the School of Engineering. The opportunity to design for specific disabled individuals will provide engineering seniors with a unique and rewarding real-world educational experience.